A Coordinated, Cross-Curricular Focus to Enhance Student Learning in the Plant Sciences

In order to promote the plant sciences and integrate the interests of the faculty, the college's field station forest is being utilized as a living laboratory. Building on an already established foundation of species sampling by freshman students, upper division students investigate anatomical, morphological, physiological, and molecular/cellular systems to measure the impact on the forest of the developed/agricultural land which surrounds it. The equipment enhances that previously acquired through an earlier CSIP grant, and includes a photomicroscope, herbarium cabinets, spectrophotometer, refrigerator, electrophoresis equipment, oxygen meter with electrode, and a plant growth chamber. The college will provide an amount equal to the award.